Collaborative Research: Polar Experiment Network for Geospace Upper atmosphere Investigations (PENGUIn) - Advancing the Vision for Global Studies

This project would continue the operation, maintenance and research being done with the Automated Geophysical Observatories (AGOs) in Antarctica. The older AGOs would be supplemented with new types of systems referred to as Automated Real-time Remote Observatories (ARRO) and Autonomous Low-Power Instrument Platforms (ALPIPS). The project will continue research in four broad topic areas: (1) magnetospheric substorm phenomena, (2) polar cap phenomena, (3) cusp phenomena, and (4) radiation belt dynamics. This is a collaborative project involving nine institutions. Data collected by the instruments will be made available to the public in near real-time. The project includes significant student involvement, both graduate students and undergraduates.